Acquisition of GPC/Static Light Scattering System for Polymer, Membrane and Colloid Science Research Program

9703973 Khan The Chemical Engineering Department at North Carolina State University (NCSU) will purchase a Gel Permeation Chromatography /Static Light Scattering system to obtain critically needed information in polymer, membrane and colIoid science research. The equipment will be used for several funded projects, including (1) The Influence of Chain Configuration and Composition on the Extraordinary Permeation Properties of Substituted Polyacetylene Vapor Separation Membrane Materials; (2) Gas Transport and Barrier Properties of Novel Aromatic Polyamides; (3) Enzymatic modification of water soluble polymers; (4) Composite Polymer Electrolytes Using Fumed Silica; (5) Synthesis Rheology and Microstructure of Polymer Grafted Latex Systems for Water-borne Inks; and (6) Asphaltene and Discotic Mesogen Aggregation in Model Solvent System: Effect of Aggregat on Emulsion Stability. To sustain these strong research program and provide for new and innovative research, a modern gel permeation chromatograph (GPC) / static light scattering system (SLS) is essential. The GPC/SLS system would provide the capability to determine molecular weight, molecular weight distribution and chain configuration of block copolymers substituted polyacetylenes that are being developed as membrane materials, enzymatically modified guar galactomannans for use in food and oil/gas applications, and graft comb polymers that are being synthesized as low water-borne inks. The success and completion of each of these projects hinges on information obtained using the acquired instrumentation. A sensitive GPC/S is required to characterize microstructures resulting from polymer-fumed silica-lithium ion interactions in novel polymer electrolyte materials. This instrument will also have the capability to measure the size, topology, and fractal dimension of asphaltene aggregates. These new capabilities will provide crucial information for the growing interdisciplinary research program in polymer rh eology, membrane, and colloid sciences at NCSU and enable it to remain strong and vital in the years ahead. The acquired equipment would also play a major role in training undergraduates in the newly-created polymer and colloid science track in the BS Chemical Engineering program. ***